International Research Fellow Awards Program: High- Resolution Electron Holography of Thiol-Derivatized MetallicNanocrystals

9600398 Murthy The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twentyfour months of research abroad. The program's awards provide opportunities for joint research, and the use of ulique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. Srihari Murthy to the laboratory of Professor Hannes Lichte at the Technische Universitat Dresden in Dresden, Germany. Dr. Murthy and Professor Lichte propose to employ high resolution electron holography to systematically obtain structure images of individual gold and silver nanocrystals in various crystallographic orientations, and from this to obtain three-dimensional morphologies of these nanocrystals with atomic-scale detail. They will also obtain structure images of the thiolate layer (which is made up of light atoms) and hence not imaged by conventional high resolution techniques on gold/silver nanocrystal surfaces using high resolution electron holography. These studies will serve to significantly extend our understanding of the structure of these important new materials. ***